Stability and macroscopic properties of heterogeneous media

Grabovsky
DMS-1008092

The investigator studies problems related to composite
materials, martensitic phase transformations, and morphological
stability in materials. First, he considers exact relations and
links for effective tensors of fiber-reinforced elastic
composites, by applying the general theory developed by him and
his collaborators. The general theory provides a strategy for
finding every relation and link. However, the actual execution
of that strategy is far from trivial. The case of
fiber-reinforced elastic composites is both important for
applications and incredibly challenging technically, because the
microstructure is two-dimensional while the properties of the
composite are represented by three-dimensional fully anisotropic
elastic tensors. This topic builds on the successful solution of
a similar, simpler problem in the context of Hall-effect
conductivity. A second problem concerns morphological stability
of phase boundaries in materials capable of undergoing
martensitic phase transformations. The investigator studies the
possibility of a configuration in which the only mode of
instability is the global motion of the phase boundary.
Mathematically this corresponds to the failure of the generalized
second variation to stay positive. The difficulty is that all
other stability criteria are required to be satisfied. The
resolution of this issue opens the way to a complete
understanding of all instabilities of configurations with smooth
phase boundaries. In the context of periodic composites,
morphological instabilities may occur locally within a period
cell. Their interaction with the effective behavior of a
composite is investigated, following prior work for structural
and material instabilities.

Heterogeneous media, or media with internal structure, are
of great importance in applications. Composite materials, which
have by now become ubiquitous, are one example. Another example
is shape memory alloys and other smart materials. These two
groups of materials are very different, yet have some important
common features. A well-known connection between the two
theories can be used to shed light on the less well-understood
theory of martensitic phase transformations responsible for much
of the shape memory behavior. One aim of this project is to
understand elastic properties of fiber-reinforced elastic
composites. Such composites may combine two cheap but imperfect
materials to produce a new material that is either rare or not
found in nature at all. For example, modern skis use composites
to create a material that bends easily but is incredibly stiff
with respect to torsion. However, there are limitations to what
can be achieved by composites. The investigator maps out those
instances where the benefits of creating composites are
dramatically reduced due to the presence of "exact relations,"
i.e. relations between material moduli that cannot be altered by
making composites, no matter how hard one tries. The present
work focuses on a very widely used class of fiber-reinforced
composites. Another aim of the project is to understand
instabilities in models of non-linear elasticity and shape memory
alloys. One widely known type of elastic instability is
buckling. Martensitic phase transitions responsible for shape
memory behavior are another kind of instability. These examples
show how important instabilities are in applications. The
investigator classifies all possible instabilities in a
systematic way, with the secondary goal of solving one of the
long-standing mathematical problems: finding "correct" sufficient
conditions for stability.